Algebraic and Geometric Topology

Davis and Orr investigate several issues concerning the classification
of manifolds, as well as the classification of embeddings of manifolds
in manifolds, i.e. knot theory. A variety of tools are used: surgery
theory, localization and completion of groups, rings and spaces, index
theory, von Neumann algebras, Whitney disks techniques, algebraic K-
and L-theory, and controlled topology. Some problems of interest are
the study of connected sums of manifolds and corresponding Nil and UNil
phenomena, the concordance classification of knots, actions on a
product of spheres, and the ribbon/slice problem. The goal, as usual
in geometric topology, is to use a variety of algebraic, geometric, and
analytic techniques to find and compute invariants for classification.

Geometric topology is the study of manifolds. An n-dimensional
manifold is a set of points locally modeled on n-dimensional
Euclidean space. For instance, a 2-manifold is a surface and looks
like a plane near each point. Many physical phenomenon are represented
by manifolds, and as such, understanding the global structure of a
manifold, and what possible manifolds exist, is fundamental to the
sciences, as well as to mathematics. Additionally, one asks how
manifolds can sit within manifolds, a subject known as knot theory.
Knot theory has been used to model genetic structures and chemical
bonds.